Mechanics of Phase Transformations in Solids

The purpose of the proposed research is to develop models for prediction of microstructure and transformation temperature for materials that undergo phase changes under stress. As an integral part of this research, the theoretical model will be checked experimentally. The research will provide fundamental knowledge for present and future applications of materials which change phase. The behavior of these materials under stress plays a central role in the transformation toughening of ceramics, the optimization of ferroelectrics in hydrophones and the potential use of shape-memory materials. The proposed research has a great potential for providing a better understanding of microstructural effects and new discoveries in a technologically important class of materials.